Unassisted Refugee Resettlement in Eastern Sudan

The processes of refuge migration and resettlement have long attracted the attention of social scientists. Much research has enhanced understanding of the ways that refugee populations move, resettle, and adapt under different physical, social, and regional environments. Geographers have studied different phases of the refugee experience: flight, resettlement, repatriation, and reintegration. New approaches attempt to place the refugee question within a contextual analysis which concerns how social, economic, and political structures impinge upon the resettlement of refugees. This project will strengthen geographical analyses of refugees by placing refugee resettlement into a larger context of time and social space. The study will conduct a detailed longitudinal analysis of unassisted refugee resettlement in the eastern Sudan, and it will identify factors which determine the pace and scale of repatriation. Data will come from a survey questionnaire, archival documentation, focus interviews with local leaders, and interviews with members of the institutional hierarchy associated with refugees. This project will contribute to a better understanding of refugee resettlement in three ways. First, it will place refugee resettlement in a larger context which will link processes operating at different scales of analysis. Second, it will examine how relations within the household are reorganized to accommodate the pressures on refugees. Third, it will uncover the specific mechanisms which create differential access to physical, financial, and social resources among refugees and their hosts.